Weil-etale cohomology of arithmetic schemes

The proposer has constructed a Grothendieck topology for varieties over finite fields
such that, modulo standard conjectures, special values of zeta-functions can be
computed as Euler characteristics (in a suitable sense) of certain motivic sheaves or
complexes of sheaves. He now intends to work on the construction of a similar
Grothendieck topology for schemes over number rings.

The Riemann zeta-function (discovered by Riemann in the nineteenth century) and its
generalizations express many deep relations between analysis and number theory.
These relations should be consequences of a deep underlying topological structure.
This project is an investigation into the properties which that structure would have to possess.